Collaborative Research: The Experimental Determination of the Partitioning Behavior of Y and the Rare Earth Elements Between Pyroxene and melt at High Pressure (10-20 Kbar).

The principal investigator, in collaboration with Dr. Roger Nielsen of Oregon State University, will study the partitioning of rare earth elements between pyroxene minerals and melts over a wide range of temperatures and pressures. The data will provide important information to geologists who are attempting to understand the origin and evolution of igneous rocks and magmas.